Cation and Anion Distributions in Minerals

This study is an experimental and theoretical investigation of cation and anion distributions in minerals. Experimental study of cation distributions will primarily use the method of electron-channeling (ALCHEMI) with supporting studies using x-ray and neutron diffraction. There are two main objectives of the cation studies. The first is to make a detailed assessment of the errors in ALCHEMI by comparing results of channeling experiments on a number of phases with occupancies determined on the same samples by other well-established methods. The second objective is to exploit some of the unique advantages of the method in conducting qualitative and semi-quantitative determinations of site occupancies and site preferences in a number of geologically and geophysically significant minerals.